CMOS IC Performance Enhancement Via Wave Pipelining

Liu Wave pipelining techniques have a good potential to improve the performance of a digital system design. The success of achieving CMOS wave pipelining requires a design methodology which tightly couples the knowledge of technology, process, circuit, logic, and system architecture design as well as CAD tools for design and testing. While preliminary results have clearly demonstrated the feasibility of wave pipelining in CMOS, more work is needed toward the efficient design of wave pipelined systems. This project is to develop and demonstrate design techniques and VLSI structures for wave pipelining based on CMOS technology, primarily because of its wide availability and relatively low cost. Useful application areas for wave pipelining in high speed systems include high speed sampling circuitry, digital phase locked loops, MUX and DEMUX, error correction circuits, data and clock recovery for fiber optics.